Transforming Traditional Quantitative Analysis into a Coursein Modern Analytical Science

Transforming Traditional Quantitative Analysis into a Course in Modern Analytical Science. This curriculum development project transforms traditional sophomore quantitative analysis into a course on modern analytical science. Building on work supported by the NSF, we are developing a course that emulates the working environment of a modern commercial analytical laboratory. The new lab work reflects a commitment to addressing organic, biological, and environmental studies, in place of much of the traditional emphasis on simple inorganic systems. The types of investigations include: separations science (mixture analysis); multi-element and trace analysis; and combined physical & chemical characterization. Pervading all of this is a laboratory structure based on Federal Good Laboratory Practice guidelines, where students are responsible for calibration, certification, and documentation. The objectives of Phase 2 of this project, proposed here, are (1) to conduct a realistic experiment in transportability of the re-structured sophomore quant course; and (2) to produce a Laboratory Manual which is flexible enough to be useful even at institutions with limited resources. We have enlisted the cooperation of a small but diverse group of interested academic institutions to test transportability at their respective campuses. These schools will also provide feedback regarding laboratory revisions to help accommodate the wide diversity of academic resources. We will initiate Phase 2 with a summer workshop in 1995 at SJSU for all participating faculty. This event will be repeated through 1997, with a viable Laboratory Manual as the ultimate product.